Manufacturing Productivity

The purpose of this project is to analyze the productivity within manufacturing industries using the longitudinal research data base at the Bureau of the Census. The goal of this research is to determine why some industrial plants are more productive than others and, to ask whether there is any systematic relation between trends in the productivity growth of an industry and changes in the distribution of productivity of the plants within that industry. This project is important because it will help us better understand the factors governing productivity at the plant and industry level. The first part of the analysis will use the rankings of productivity of plant and nonparametric tests to determine whether, when productivity growth slowed, was the slowdown uniform across plants or did some plants slow more or less than others? Did the plants that were on the productivity frontier slow more or less? Similar questions can be asked for the period of the rebound in productivity. The second part of the analysis will follow the productivity of plants over time in order to assess alternative models of the productivity distribution.